Regulation of Toxicity in the Dinoflagellate Alexandrium

9415536 Anderson PROJECT ABSTRACT Blooms of toxic dinoflagellates in the genus Alexandrium result in outbreaks of paralytic shellfish poisoning (PSP), one of the more serious of the global marine phenomena collectively termed "red tides". The economic, public health, and ecosystem impacts of PSP outbreaks take a variety of forms, and include human intoxications and death from contaminated shellfish or fish, stages of fisheries species, and death of marine mammals, fish, and seabirds. These impacts are caused by the saxitoxins, a family of neurotoxins produced by the dinoflagellates and accumulated in zooplankton, shellfish, or fish during feeding. The overall objective of this project is to identify genes involved in toxin production in Alexandrium spp. and other saxitoxin-producing organisms and to study the manner in which they are regulated. The approach will use differential display to identify messenger RNA differences between cells that differ in their ability to make toxin. Differentially expressed sequences can then be used to screen for the putative toxin genes in a wide range of toxic and non-toxic species of dinoflagellates and cyanobacteria. Other indirect evidence for the toxin-specificity of the identified genes will derive from manipulations of dinoflagellate metabolism using inhibitors that block toxin biosynthesis at different levels. If the differential display approach is not successful because the toxin genes are not regulated at the transcriptional level, traditional methods of two-dimensional protein electrophoresis will be applied to extracts of Alexandrium from different cell cycle stages to address the remaining possibility of translational/post-translational regulation. This in turn will lead to the identification and isolation of genes implicated in toxin production. Both of the above approaches will provide genetic tools needed to conduct regulatory studies to determine the mechanisms by which these genes are turned on and off. The information gained will aid in deciphering some of the long-standing mysteries surrounding the metabolic role of saxitoxin in dinoflagellates and the toxin variability observed in different isolates or in individual isolates under different environmental conditions.